Workshop to Explore Engaging Broader Publics in Conversations About Assessment of the Societal Implications of New and Emerging Directions in Science and Technology

The Museum of Science, Boston, in partnership with Arizona State University, the Woodrow Wilson International Center for Scholars, the Loka Institute, and Scienceforcitizens.net, is conducting a 1.5-day workshop whose goal is to strengthen and expand recent cross-sector network-building activities related to engaging the public in conversations and deliberations about the assessment of the societal implications of science and technology. In attendance are about two-dozen participants representing a wide range of informal science education professionals, STEM researchers, and science policy experts.

The workshop is focusing on: (1) techniques for citizen participation in technology assessment, (2) ways in which informal educational organizations are addressing the intersection of STEM with personal and societal decision-making, and (3) models for leveraging work done by others who are exploring public engagement with future technologies. The process will also help generate and coalesce ideas for the 2012 World-Wide Views on Biodiversity program, an international effort to engage the public on the topic of world-wide loss of biodiversity. The workshop outcomes will be evaluated by the Museum's Research and Evaluation Department.